Biological Oceanography: Acquisition of a four-color flow cytometer/cell sorter

0078908
Sherr
This Major Research Instrumentation award to Oregon State University's College of Oceanic and Atmospheric Sciences provides a flow cytometer and cell sorter for biological research in ocean and environmental sciences. It will be used for a variety of microbial ecological research projects by investigators from OSU and other universities. It will be managed as a recharge facility available to many researchers and students in the laboratory, and it will also be available for seagoing research projects. The project is supported by the Division of Ocean Sciences at NSF. Oregon State University will provide cost-share support for 30% of total project costs.
***